Conference: Southern Regional Council on Statistics Summer Research Conference

The 61st Summer Research Conference (SRC) will be held in Pensacola Florida on June 7-10, 2026. The Southern Regional Council on Statistics (SRCOS) is a consortium of statistics and biostatistics programs from universities in 16 states in the Southern region. The SRC is an annual conference sponsored by the SRCOS. The purpose of the SRC is to encourage the exchange and mutual understanding of current research ideas in statistics, biostatistics, machine learning, and data science, and to provide motivation and direction for further progress in research. The SRC will give new researchers an opportunity to participate in the meeting and to interact closely with leaders in the field in a manner not possible at larger meetings. In addition to the graduate student participation, the 61st SRC will also include the 7th annual Statistical Undergraduate Research Experience (SURE) from June 8-10, 2026. SURE is a conference within a conference aimed at encouraging undergraduate students to pursue graduate education and career opportunities in STEM fields. SURE will include events specifically designed for undergraduate students and mentors, such as a panel on career opportunities in statistics, biostatistics, data science, and artificial intelligence; a real-data analytics workshop featuring modern statistical and machine learning methods; and a speed-mentoring session with current statistics and biostatistics graduate students.

The SRC is particularly valuable for graduate students, isolated statisticians, and faculty from smaller regional schools in the southern region, who can travel to it within driving distance without the cost of travel to distant venues. Speakers will present formal research talks with adequate time allowed for clarification, amplification, and further informal discussions in small groups. Research topics will span theoretical and applied statistics, biostatistics, machine learning, artificial intelligence, computational methods, and interdisciplinary data-driven applications. Under the travel support provided by this award, graduate students will attend and present their research as posters for review by more experienced researchers. Participation in SURE will encourage undergraduate students to enter STEM fields, including statistics or biostatistics, data science, and AI-related disciplines, while providing training and mentorship to support this endeavor. The 61st SRC will strengthen the research community in statistics and biostatistics while fostering collaboration with emerging areas such as machine learning and artificial intelligence. The conference will help bridge the pathway for undergraduate students to pursue advanced study and careers in statistics, biostatistics, data science, and AI, particularly within the sixteen states of the Southern Region. The SRCOS website can be found here: https://www.srcos.org; the SRC website can be found here: https://www.srcos.org/src-2026; the SURE website can be found here: https://www.srcos.org/sure-2026.